Research on Automated Theorem Proving

This project is part of an ongoing effort to build more powerful computer programs for proving theorems in mathematics and application areas. The work can be divided into subareas: building provers with large-step capacity; using analogy to aid in proof discovery; combining known methods for new proofs in higher order logic; and mechanical methods for streamlining proofs.